Morphometric and Phylogenetic Studies of Shoot Development in the Araceae

Members of the genus Araceae include morphologically and ecologically diverse tropical plants. In some genera, shoot development is altered allowing the plant to climb toward the forest canopy. Dr. Thomas Ray proposes to use state-of-the-art approaches to studying shoot and leaf development in various genera of aroids, in order to learn how different patterns of plant development have evolved. A microcomputer-based image analysis system will be used to measure shape and size of leaves and shoot organs, and these new data will be studied against the framework of ancestor-descendant relationships. The proposed research will reveal the evolutionary pathways that different developmental types have traversed. The proposed research has implications beyond the study of Araceae taxonomy and evolution. Biologists are keenly interested in how development is altered during evolution, and how development constrains the path that evolution may take. Dr. Ray's work will also broaden the application of computer-aided research in botany, and will provide new computer software to the community of evolutionary systematists.